Symplectic Manifolds with Boundary

9700209 Cieliebak This project lies in the area of symplectic topology with an emphasis on symplectic manifolds with boundary. Specifically, the investigator wishes to give a geometric interpretation of Gromov's squeezing theorem and to obtain new results about the structure of Hamiltonian flows on 3-dimensional manifolds. Symplectic manifolds are curved spaces admitting a structure akin to that possessed by complex Euclidean space. Symplectic manifolds have applications in mechanics as well as other parts of mathematics including complex geometry. In Hamiltonian theory of mechanical systems for example, the use of symplectic manifolds results in certain conceptual as well as computational simplifications.